Graphs and Patterns in Mathematics and Theoretical Physics

Abstract

Award: DMS-0107455
Principal Investigator: Mikhail Lyubich

The International Conference on Graphs and Patterns in
Mathematics and Theoretical Physics at SUNY Stone Brook in 2001
will bring together researchers in several branches of
mathematics and theoretical physics in which graphs play a
central role, hoping to encourage fruitful interactions between
these fields. This conference is a celebration of Dennis
Sullivan's sixtieth birthday and addresses some of the topics of
recent interest to Sullivan. Themes to be emphasized include (1)
graphs and algebra, (2) graphs and discrete Riemannian geometry
and discrete gauge theory, (3) graphs and bifurcation patterns in
dynamical systems, (4) graphs and quantum field theory and
topology. Minicourses on conference topics will be pointed
towards graduate students and junior researchers.

A graph in the sense used in the title of this conference is a
data structure consisting of some number of "vertices," usually
drawn as dots, joined by "edges," usually drawn as curves
beginning at one vertex and ending at another. This kind of
graph is a common combinatorial structure, encountered every day
in problems of transportation and scheduling (consider a network
of roads or telephone lines, for example), but useful in many
less obvious ways. Some of the recent uses of graphs in geometry
and physical theory grow out of Richard Feynman's celebrated idea
of describing parts of quantum theory with graphs that represent
possible lifetimes for a particle in space-time. Feynman's
notion that a quantum theoretic quantity may represent a sum over
all possible histories is reduced from a large, continuous
calculation to a summation indexed by the different possible
Feynman graphs. In a similar manner, modern geometers and
physicists are exploring ways to work with the very large
collections of all possible geometric structures on a particular
space by reducing to manipulations of a family of graphs.